Mathematical Sciences: Representation Theory of Reductive Lie Groups

Collingwood will investigate the relationship between the singularity theory of Harish-Chandra modules and the matrix coefficient asymptotics of Harish-Chandra modules. He will also study several problems related to qualitative features such as the weight filtration of any degenerate series or generalized principal series representation. This builds upon recent work of Collingwood which carries over the highest weight module work of Enright and Shelton to a more general Harish-Chandra module setting. The theory of Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.